Publication of 1987-1990 U.S. National Committee Report to the Twentieth International Union of Geodesy and Geophysics General Assembly

This award provides partial support for publicaiton of the quadrennial U.S. National Repoprt to the IUGG.